Quantitative Challenges in the Post-Genomic Sequence Era: A Workshop and Symposium to be held in San Diego California on January 11-15, 2000

Onuchic, Jose N.
MCB-9909549

The human genome sequencing project has turned the focus of quantitative studies of genomic information from the gathering and archiving of genomic data to its analysis and use in prediction and discovery. Key to this new era is work across many disciplinary interfaces, the utilization and development of quantitative tools, and the training of individuals who are comfortable and equipped to work at these evolving interfaces. With this vision in mind, the La Jolla Interfaces in Sciences, LJIS, program will organize and host an event entitled: "Quantitative Challenges in the Post Genomic Sequence Era: A Workshop and Symposium". This event will be held in San Diego, California. It will consist of a two day workshop, January 11-12, 2000, followed by a three day international symposium, January 13-15, 2000. Complete details are available on the LJIS website, http://ljis.ucsd.edu.